Workshop on Design Theory and Methodology; Troy, New York; June 2-5, 1988

This workshop on Design Theory and Methodology is to be held at Rensselaer Polytechnic Institute in Troy, New York, on June 2-5, 1988. The workshop will involve some 60 grantees from NSF's program in Design Theory and Methodology and their students together with some 40 "outsiders" who will help to establish the state-of-the-art of both design theory and this program. A workshop proceedings will be published.